Investigating the Big Ideas: A Mathematics Program for Preschool and Kindergarten Children

9730683 Ginsburg Columbia University plans to design, develop, evaluate, and disseminate mathematics program, "Investigating the Big Ideas" for 4 to 5-year old children. At the core will be a two-year sequence of explorations and learning activities aimed at extending and elaborating on pre-schoolers' informal mathematical interests and abilities, and developing their understanding of core mathematical concepts in an enjoyable and exciting way. Although the materials will be designed for all children, this project will ensure that they are effective with low-income children in nursery school, day care, Head Start, and kindergarten settings. The project will also develop guides for teachers, caregivers, and parents. These ancillary materials will include videotaped demonstrations. The materials will be produced over a four-year period, with an eye towards large-scale dissemination.